PECASE: Theory of Black Hole Accretion Flows

Dr. Gammie will carry out a research program in theoretical and computational astrophysics that focuses on building numerical models of plasmas flows around black holes. The release of gravitational binding energy in black hole accretion flows is thought to power quasars and active galactic nuclei, and, in our own galaxy, the black hole X-ray binaries. Dr. Gammie will lead an effort to develop a new code for general relativistic magnetohydrodynamics, together with a postdoctoral researcher and students. This code will be able to address some of the fundamental unsolved problems in the field, related to how jets are launched and under what circumstances energy may be extracted from a rotating black hole. In teaching, Dr. Gammie will develop a 'digital demo room' to aid in astronomy and physics instruction. The numerical models available in this demo room will focus on topics in stellar evolution, supernovae, star formation and galactic structure. The demo room will be based around a web interface, which will be tuned to give students access at introductory, intermediate, or advanced levels. The demo room will be developed with the participation of undergraduate students in astronomy, computer science, education, graphic design and physics.